Technician Support: Stable Isotope Mass Spectrometry

9405742 Rye This award provides partial funding for the support of a technician assigned to the stable isotope laboratory in the Department of Geology and Geophysics at Yale University. The laboratory operates three stable isotope mass spectrometers and has a heavy analytical work load of measurements from research projects dealing with fundamental problems in atmospheric, oceanic, mineral resources, and environmental science. ***